Intrinsic and extrinsic integral geometry

Abstract

Award: DMS-9972094
Principal Investigator: Joseph H.G. Fu

We propose to study the geometry of certain singular spaces,
whose curvatures are naturally defined as measures. The
curvatures under consideration are those arising in the
Steiner-Weyl tube formula. For smooth spaces these quantities
are curvature integrals. For singular spaces they are the total
variations of certain signed measures which may be regarded as
generalized curvatures. In all known cases these curvature
measures, which are a priori defined with respect to an embedding
of the singular space in Euclidean space, are in fact computable
solely from the intrinsic metric structure of the space. Our
general goal is to understand and extend this phenomenon. This
problem was attacked independently by Alexandrov and by Federer
in the 1950s. Alexandrov's approach was intrinsic but limited to
2 dimensions, while Federer's theory dealt with embedded objects
of general dimension. Further progress will depend on the
reconciliation of these two methods. We propose that the
technical key is based on the use of the geometric measure theory
of currents. The starting point is the fact that Federer's
theory may be recast in the following terms: to certain singular
subspaces X in euclidean space there is an associated integral
current N(X) in the sphere bundle of the ambient space. This
current satisfies the Legendre condition (i.e. it annihilates
the differential ideal generated by the canonical 1-form) and is
determined by its relation with the Morse theory of X. The
curvature measures of X are then computable in a canonical way
from N(X). Our proposal is based on recent work of the proposer
using the current theoretic framework, showing that Alexandrov's
theory may be understood in similar terms. This suggests the
possibility of generalizing the intrinsic approach to higher
dimensions.

In ordinary terms, this project aims to develop a mathematical
language adequate to describe geometrical forms we encounter
every day: for example, the crumplings of a sheet of paper or the
surface of a rock. Even though geometrical shapes typically
found in nature tend to be rough ("singular"), for technical
reasons geometry as it has developed historically restricts its
attention to smooth objects. Our goal is to be able to deal
mathematically with such objects without imposing such
unrealistic assumptions. We expect that this work will
eventually have a technological impact, in such areas as computer
visualization and the study of buckling of sheets (as of a car
fender during a collision).